Developing Local Capacity for Curriculum-Based Coaching in Elementary Mathematics

Early mathematics proficiency is a critical predictor of students’ academic achievement and their future opportunities in science, technology, engineering, and mathematics (STEM) fields. This begins with high quality teaching practices in the classroom. Many school districts struggle to support teaching practices effectively, often relying on new curriculum materials without providing professional learning teachers need to use those materials. Prior research has shown that instructional coaching can be an effective approach to supporting teacher learning, yet there is a significant gap in understanding how the coaches themselves learn and grow. This project addresses this challenge by investigating how coaches learn. By documenting the conditions that foster coaches’ learning to succeed in various school settings, the project will provide the education field with a robust, scalable coaching structure and insights into developing coaching expertise to support teacher learning.

Fostering high quality instructional practices is a complex phenomenon that is not well understood. Frequently, new curriculum materials are given to teachers without providing them sustained, effective professional learning opportunities. To mitigate that challenge, prior research has shown that instructional coaching can support teacher learning. There is a significant gap in research gap explaining how coaches develop greater knowledge that may in turn support teachers’ instructional practices. Drawing on design-based implementation research, a continuous improvement model, and implementation science, the project will investigate how coaches learn to interpret, implement, and adapt the Lesson Analysis Cycle across diverse district contexts. Focusing on Grade 4 mathematics, the research team will examine the development of essential coaching competencies, including professional vision, noticing, and the ability to facilitate meaningful mathematical conversations that integrate mathematical content, pedagogy, and student thinking. The project will utilize a mixed-methods approach, including semi-structured interviews with coaches and district leaders, field-tested teaching analysis tasks, and the integration of Large Language Models to analyze the depth and specificity of coaching interactions. By identifying the features of district infrastructure and curriculum that support or constrain coach learning, this study will contribute foundational knowledge regarding how organizational conditions enable the scaling of curriculum-based coaching to support high-quality, ambitious mathematics instruction.

This project is supported by NSF's STEM K12 program. The STEM K12 program supports fundamental, applied, and translational research that advances STEM teaching and learning and improves understanding of education across the human lifespan and a range of formal and informal settings.